Ship Operations

9622441 PITTENGER In 1996 Woods Hole Oceanographic Institution will operate the research vessels ATLANTIS II, KNORR and OCEANUS in support of NSF- sponsored research. The KNORR will finish the WOCE Indian Ocean work in early 1996. Two multibeam cruises will utilize the new multibeam capability of the ship. The Knorr will support a chemistry cruise off the coast of Brazil before heading to the "Rainbow Site" off Barbados. The Navy will use the vessel in the Baltic and then it will return to WHOI for an extended maintenance period . OCEANUS will support a variety of cruises in the northeast Atlantic and one cruise off Bermuda. The vessel will support 211 operational days of which 75 are in support of NSF-sponsored programs. The remaining 136 days are in support of Navy and DOE programs. ATLANTIS II provides support for the Deep Submergence Vehicle ALVIN, all 1996 AII cruises are in support of the unmanned submersible. The schedule begins with two cruises off the coast of California with a 2 month stand-down period between the cruises. The vessel will support a series of cruises off the East Pacific Rise before transiting to the Atlantic to support cruises off the east coast of the US and one cruise off Bermuda. The vessels operated by WHOI are part of a fleet of ships used by the National Science Foundation in support of marine science. Oceanography requires highly specialized equipment that is required to be permanently installed on the vessel, thus specialized ships. These vessels do not operate in the same general mode as cargo/fishing vessels. As a result, NSF supports the operation of a variety of vessels specifically dedicated to oceanographic research that are operated by universities and institutions around the country. ***